Groups and Algebraic Geometry at the Centre de Recherches Mathematiques

This award will fund U.S. graduate students and post-doctoral
fellows attending the Centre de Recherches Mathematiques in
Montreal for periods of several weeks during a semester of
activities centered on the theme of Groups and Algebraic Geometry
during Spring, 2002. The activities planned include a strong
component of training, including 1) a four day workshop on
Hilbert Modular Varieties and Forms, 2) a one week Winter school
on Computations in Coxeter Groups, 3) a one week workshop on
Group Actions on Rational Varieties, 4) a two week workshop on
Invariant Theory, 5) a one-month concentration period on the
Langlands Program for Function Fields, 5) a two week workshop on
Computational Lie Theory, and 6) a one week workshop on
Algebraic Transformation Groups.
The Centre de Recherches Mathematiques in Montreal is one of
Canada's three research centers in the mathematical sciences, and
has a broad mandate covering all of the various aspects of
development of the discipline, with activities comprising theme
years in various topics, a general conference program, an
industrial program, a publications program in partnership with
the American Mathematical Society, as well as activities devoted
to education. The themes cover some of the most exciting areas
of the mathematical sciences and typically alternate between pure
and applied disciplines. This award will provide support for
U.S. students and postdoctoral fellows so that they can attend
the events during the Spring 2002 semester. This semester is
thematically devoted to Groups and Algebraic Geometry, a
difficult area of research in which few, if any, universities can
offer coverage by advanced courses which allow for adequate
graduate student preparation. This award will allow students to
take advantage of an exceptional opportunity for education and
training by the world's leading experts in areas that have seen
significant numbers of recent breakthroughs.